Graduate Student Support for Participation at the International Ozone Commission (IAMAP) 1992 Quadrennial Ozone Symposium

This grant provides funds to help support graduate student attendance at the 1992 Quadrennial Ozone Symposium, to be held from June 4-13 at the University of Virginia. The funds will allow a reduced registration fee for all attending graduate students and provide travel funds for some. This grant is jointly supported by the Division of Polar Programs and the Division of Atmospheric Sciences.